STTR Phase II: A Design-Driven Educational Robotics Framework

The broader impact of this Small Business Technology Transfer (STTR) Phase II project is in teaching K-12 and college students STEM concepts in the fun-filled context of designing, building, and programming machines and robots and preparing them for the future technology-driven jobs. This project seeks to make robotics education affordable, equitable, and inclusive for students at all grade levels. By taking a multi-disciplinary and cross-curricula approach, the product developed through this project engages students, especially women and minorities from diverse backgrounds, effectively in STEM disciplines and helps them make suitable career choices. The ultimate goals of this project are aligned with the NSF's mandate to support development of a strong STEM workforce and help fill the 2.5 million STEM jobs that are vacant according to the current US Department of Labor Statistics. The technological innovations emerging from this project would result in a computational tool for synthesis of robot motions, which can be used broadly in industrial automation and invention of machines and robots. The proposed design-driven educational robotics product has the potential to improve engagement with science and technology and positively impact the U.S. educational robotics market, which is expected to grow to $2.7 billion by 2021.

This Small Business Technology Transfer Phase II project aims to bring together rigid body kinematics, machine learning, and engineering design to create a new product for design-driven robotics education for K-12 schools, freshman college programs, and STEM camps. The leading commercially available educational robotic systems emphasize 1) instruction-driven prototyping of robot structures using many specialized parts, and 2) programming them without providing any intuition behind the design process or guidance to creating mechanism design concepts for the realization of the motion of the robots. Driven by a need to keep pace with the evolving techno- and socio-economic requirements, new science standards, and remain competitive, schools and camps are increasingly adopting STEM and Robotics programs and products. This product would fill that void that currently exists in the educational market. If successful, this project would result in a state-of-the-art motion design software, a novel hardware kit, and standards-aligned curriculum and learning resources for schools and colleges. The software based on the machine learning in mechanism design research will allow creation of robot assemblies and their motions before constructing their corresponding physical models and provide students necessary skills and experience in the design process.